Joint Meeting of the History of Science Society and the British Society for the History of Science; Manchester, England; July 11-15, 1988

On 11-15 July, 1988 in Manchester, England, the History of Science Society (HSS) and the British Society for the History of Science (BSHS) will be holding the first-ever joint meeting of the two organizations. Many of the papers presented during the three-day meeting will focus on Anglo-American relations in the history of science and technology, although the meeting will include presentations on a wide range of topics from the Renaissance to the present. The program, as currently taking shape, will feature 18 specially organized morning sessions in which the papers will be precirculated to allow for maximum discussion. Afternoons will be devoted to a dozen or so thematic sessions and various work-in-progress papers. It is anticipated that at least 75 North Americans will be on the program (with an equal number representing the BSHS). Of this group, roughly 70% are regularly employed in academic and research institutions, 25% are graduate students, and 5% are unaffiliated. Approximately two-thirds are men, one-third are women. This grant will assist 25 US participants in this meeting with their roundtrip air fare on a US flag carrier.